Lefschetz Fibrations of Symplectic 4-Manifolds

DMS-0072264
Terry Fuller

Recent results in 4-dimensional topology have shown that
symplectic 4-dimensional manifolds can be characterized
topologically by the property of admitting a Lefschetz fibration.
This proposal concerns constructions of Lefschetz fibrations,
and in particular focuses on constructions involving branched coverings. We propose to develop and investigate applications
for a procedure that compares the Lefschetz fibrations
obtained as branched covers of deformations and resolutions
of singular branch loci.

A 4-dimensional manifold is an object that on a small scale
looks like Euclidean 4-dimensional space (such as our physical
world, with time included). A fundamental open problem in
mathematics is to classify the large scale shapes of
4-dimensional manifolds. A particular variety of 4-dimensional manifold, originally appearing in classical physics
but now a central object in pure mathematics, is known
as a symplectic manifold. Recent techniques for studying
symplectic 4-dimensional manifolds involve viewing them
as Lefschetz fibrations, that is by particular sorts of
cross-sections by 2-dimensional surfaces. This project
seeks to generalize previous work of the applicant involving constructions of Lefschetz fibrations on symplectic
4-dimensional manifolds.